MRI: Development of a State-of-the-Art Physical Groundwater Flow and Transport Modeling Facility

0079464
Hayden
The overall goal of this Major Research Instrumentation project is the development of a state-of-the-art, large scale, physical groundwater flow and transport modeling facility to be used in a variety of research and education training capacities. As a modern research facility, it will be used to: 1) investigate the applicability of computer-aided analysis and design tools to the solution of groundwater contamination problems; 2) study and evaluate fundamental scientific hypotheses regarding mass transport of contaminants in layered porous media; and 3) examine and assess remediation concepts for nonaqueous phase liquids (NAPLs) in heterogeneous (layered) environments. As an education and training facility, it will be an integral part of graduate and undergraduate teaching curriculum in civil and environmental engineering, geology and environmental sciences at the University of Vermont (UVM) and offers students a unique learning and research opportunity.